Collaborative Research: DMREF: Microstructure by Design: Integrating Grain Growth Experiments, Data Analytics, Simulation, and Theory

Most technologically useful materials are polycrystalline microstructures composed of a myriad of small monocrystalline grains delimited by grain boundaries. An understanding of the evolution of grain boundaries and associated grain growth (coarsening) is essential in determining the properties of materials across multiple scales. Despite tremendous progress in formulating microstructural models, however, current descriptions do not fully account for various grain growth mechanisms, detailed grain topologies and the effects of different time scales on microstructural evolution. As a result, conventional theories have limited predictive capability. The goal of the project is to develop a predictive theory of grain growth in polycrystalline materials through the construction of novel, closely integrated data-driven numerical simulation and mathematical modeling combined with data analytics, analysis, and a set of critical experiments. This interdisciplinary project, requiring the complementary expertise of applied mathematicians and materials scientists, is firmly aligned with the Materials Genome Initiative. The new knowledge and tools that will emerge from the project will have a profound impact on the performance and reliability of polycrystalline materials used in many technologically useful systems and structures, thereby expediting advanced materials development and deployment. Predictive computational algorithms and data will be made available and accessible to other researchers. For the training of the next-generation materials workforce, in addition to mentoring of graduate and undergraduate students, the PIs (from Columbia University, Illinois Institute of Technology, Lehigh University and University of Utah) will participate in outreach activities and will continue to work towards increasing diversity and broadening participation within STEM.

Grain growth is a very complex process and may be viewed as the anisotropic evolution of a large metastable network. One of the main thrusts of the project will be to uncover possible stochastic processes that define the evolution of various statistical measures of grain growth, discover relations among them, and establish links to materials properties. Results from structure-preserving numerical simulations alongside critical sets of experiments and new experimental data will be invaluable in navigating the modeling and analysis. The project will also create and employ specific data analysis techniques for the study of dynamic evolution of grains in experimental and computational systems with the goal of validating and further refining the microstructural models. This component of the project, will lead to a) the development of new materials informatics methods, b) innovative stochastic differential equations/differential equations models of grain growth, c) new mathematical and numerical analysis techniques for coarsening systems, as well as d) improved computational tools. In turn, the results of combined data analytics, modeling and analysis will be used to guide the design of subsequent experiments. Experimentally, grain growth will be examined in prototypical metallic thin films (Pd, Ni, Cr, Fe). As most elemental metals and many metallic alloys have cubic structures, the proposed studies will have broad applicability.